Few-Level Models in Atomic Radiation Theory

A theoretical investigation is proposed for the temporal evolution of quantum correlations
in physical situations that are both appropriate for AMO experimentation and also give access to the unexplored realm of very high entanglement.

Calculational methods using the Schmidt decomposition will be employed to examine EPR correlations for massive particles in infinite-dimensional (continuous) Hilbert space.
A wide class of so-called breakup processes has been identified for which a
universal or generic time-dependent correlation theory appears realistic, and it is proposed
that work toward such a unifying theory be undertaken.

Funds will be used to support a graduate student working on the aforementioned problem.